Studies in Lattice Field Theory

Research in theoretical elementary particle physics will focus on a computational study of the mechanism of quark confinement in quantum chromodynamics. It is well-established that the familiar nuclear particles, neutrons and protons, are composed of quarks. But these quarks are for some reason confined within the nuclear particles, and are never seen as free objects. Quantum chromodynamics is the theory which describes quarks and their interactions. Understanding how quantum chromodynamics accomplishes quark confinement is one of the most important unsolved problems in theoretical physics.